Molecular Rotation-Vibration Dynamics (Physics)

It is planned to increase the scope and availability of the computer graphical approach for the study of molecular rotation- vibration dynamics. This involves the use of rotational energy (RE) surfaces and leads to a number of semiclassical quantization methods which use RE surface geometry to calculate eigensolutions. It is necessary to implement the multiple surface graphics technique on lower cost machines to permit interactive hands-on applications. One set of projects will include a study of the simplest multi-sheet RE surface problem: the asymmetric rotor coupled to a spin. This will subsequently lead to nuclear spin coupling or superhyperfine structure analysis and to full vibration rotation problems. A second set of projects will involve direct numerical generation of RE surfaces from generic hamiltonians and ab initio force field models.